SGER - Development of a Research Agenda for Virtual Environments for Science and Math Education

9453888 Moshell This proposal would support the gathering of data and production of a report which recommends a research agenda concerning the application of Virtual Environments (VE) to science and mathematics education. The principal means to be used to gather this data are 1) Correspondence with research leaders at various universities around the country, and participation in several Internet news groups to locate additional researchers; 2) Visits to six to eight of the principal sites around the country in which research on education and virtual environments is underway; 3) Travel to the United Kingdom (from France, during another trip) to visit schools and universities developing research programs in VE for education; 4) Attendance of the National Educational Computing Convention in Boston, MA for interviews and data gathering. The resulting report will be provided to the National Science Foundation in draft form on 15 May 1994, and in final form before the end of June 1994.